SCI: CyberInfrastructure for Science & Engineering

"This agreement with the University of California at San Diego recognizes the important role the Awardee will play in building, delivering and supporting cyberinfrastructure to meet the needs of the science and engineering research and education community."